Nonlinear Dynamics of the Primary Visual Cortex

McLaughlin
0211655
The investigator and colleagues have been developing a
biologically constrained large-scale computational model of the
"front-end" of the cortical visual system -- the primary visual
cortex (V1). To date, their work has focused upon local
properties of individual cells within the large-scale network --
properties such as orientation selectivity and simple vs complex
cellular dynamics. In this project, they scale up to a more
global model of V1, reaching scales large enough to study some
elementary optical illusions of psychology and psychophysics.
This involves several square millimeters of lateral cortical
area, together with a multi-layered architecture -- with emphasis
given to cortical dynamics. First, a "coarse-grained mixed
representation" is derived mathematically and tested numerically
-- a representation that combines spatially coarse-grained
(local) mean firing rates, representing local background cortical
operating points, with an idealized representation of a
sub-network of individual point neurons embedded within this
background and retaining the detailed firing patterns of
individual neurons. These two components interact with each
other -- with the coarse-grained local operating points
influencing the responses of the individual neurons, and vice
versa. Second, the global mixed representation is used to study
specific dynamical phenomena in visual cortical processing: (i)
the layer-specific "dynamics of orientation selectivity" (as
measured by reverse time correlation methods); and later (ii)
"bistability in figure-ground assignments" (as detected in
psychology and psychophysics experiments). In both cases, the
phenomena involve extensive lateral regions of V1, its layered
structure, and (likely in the case of figure-ground assignment)
other cortical regions. And in both cases the work involves
close interaction with the experimental work of neural scientist
Robert Shapley.
Today, through new biological experiments combined with the
power of modern scientific computation, scientists and applied
mathematicians are making significant strides toward
understanding the human brain. Visual perception and the cortical
processing of visual information provide important starting
points. By focusing upon the "front end" of the cortical visual
system, McLaughlin and his colleagues develop computational
models of the visual cortex that are strongly constrained by
biological experiments. In this project the investigators
develop computationally efficient numerical methods that permit
scale-up of the models to global representations of the primary
visual cortex -- reaching cortical scales large enough to study
some elementary optical illusions of psychology. This work
requires the direct interaction of applied mathematicians,
computational scientists, and neural scientists -- and involves
theoretical, computational, and experimental components.